Developing Modern Computing and Graphics-Based Methods for Teaching Important Concepts in Undergraduate Statistics Courses

Software modules are being developed which will improve student learning in undergraduate major and service statistics courses. With these modules, students can use modern commercial statistical software and computing equipment to analyze realistic data. The data analysis assignments will enable students to master the mechanics of data analysis and the important concepts that are introduced in these courses. This is particularly so for concepts that require visualizing in more than two or three dimensions (e.g., multiple regression surfaces) or that require theory beyond the mathematical abilities of the students (e.g., large-sample approximate sampling distributions). By using modern computing technology, the students will become more actively involved in the learning of important statistical concepts. The learning experience can be enhanced by giving students additional statistical experiences by using combinations of carefully designed and implemented multiple simulations and high-resolution dynamic graphics to illustrate key ideas.